Acquisition of a PC Cluster for Astrophysics and Planetary Physics at the University of California, Santa Cruz

Glatzmaier
MRI0079757
Abstract

The necessary supercomputing resources to study several grand challenge problems in astrophysics and planetary science will be developed at the University of California, Santa Cruz. The supercomputing capability will be available to all department faculty and students. The student body has 50% women. There is great potential for a broad public impact on fundamental physics issues, especially in collaboration with the Visualization lab. Research activities enabled by this new capability include simulations of planetary convection's and magnetic fields, planetary collisional modeling with smooth particle hydrodynamics, galaxy formation and large-scale structure of the Universe, and modeling of supernova and gamma ray bursts.
***